Deep Structure of an Active, Silicic Volcanic Field: Altiplano-Puna Volcanic Complex, Central Andes, South America

9505816 ZANDT This research is a study of the lithospheric structure of the Altiplano-Puna volcanic complex at the borders of Argentina, Bolivia, and Chile, in the central volcanic zone of south America. This zone has been the site of voluminous ignimbrite eruptions within the past 10 Ma and is one of the largest active caldera complexes on Earth. In addition to analyzing existing data for the region, the project will install PASCALL portable broadband instrumentation for one year in the area for recording local and teleseismic events. The aim of this work is to answer important questions about the deep structure of a major silicic volcanic field with implications for lithospheric magmatic processes in continental subduction zones, crustal thickening and melting, and the evolution of continental crust. *** ??